Mathematical Sciences Research Equipment 1989

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences of the National Science Foundation. This program supports the purchase of special purpose computing equipment dedicated to the conduct of research in the mathematical sciences. This equipment is required for several research projects and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers and with substantial cost-sharing from the institutions submitting the proposal. This program is an example of academic, corporate, and government cooperation in the support of basic research in the mathematical sciences. This equipment will be used to support several research projects in the Department of Mathematics at the University of California, Los Angeles: Calculations in the Jacobians of Hyperelliptic Curves, Distribution of Algebraic Numbers, Arithmetic over Finite Fields, and Linear Recurrent Sequences, directed by David Cantor; Determination of Cohomology Groups Arising from Conic Curves and Determination of Witt Rings of Elliptic Curves over Finite Fields, directed by Richard Elman; Isospectral Deformations of Partial Difference Operators, directed by David Gieseker; Minimal Free Resolutions of Finitely Generated Modules over the Symmetric Algebra of a Vector Space, directed by Mark Green; and Galois Groups over Algebraic Number Fields, directed by Murray Schacher.